NSF MGR Honorable Mention Award: Angelina Alvarado

This special award will give Angelina Alvarado additional flexibility in pursuing her graduate studies and research initiation in cellular and molecular biology. This award will strengthen minority research participation in this area.